Integration of Laboratory Instruction in the Pharmacy Curriculum Using Fourier Transform Infrared Spectroscopy

Integrated experiments designed to incorporate concepts from physics, chemistry biology, and pharmaceutics into the laboratory components of general and organic chemistry have been developed. The specific integrated experiments require FTIR spectral analysis. Qualitative, quantitative and chemical kinetics analyses are incorporated into these laboratory experiments. These experiments are intended for the undergraduate pharmacy curriculum. Sets of experiments with a common theme focus on integrating basic science concepts with pharmacy relevant examples. These laboratory exercises emphasize independent learning and critical thinking. A strong basic science education incorporating exercises to develop thinking abilities is essential in the preparation of pharmacy practitioners who will use this knowledge to adapt and develop drug therapies for patients. The laboratory is an ideal environment for active learning activities that help students develop the thinking abilities necessary for the practice of pharmacy.